Partnership for Innovation (PFI) to Enhance Puerto Rico's Economic Development

0090517
Gomez

This award is to the University of Puerto Rico to support the activity described below for 36 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners for this award include the University of Puerto Rico; Inter American University of Puerto Rico; Polytechnic University of Puerto Rico; Industry/University Research Consortium; Chamber of Commerce; Puerto Rico Manufacturers Association; venture capital; incubator facilities.

Proposed Activities
The activities for this award include workforce development; improved access to new knowledge for companies; creation of infrastructure for innovation; development of a strategic plan for innovation for Puerto Rico.

Proposed Innovation
The innovation goals include development of entrepreneurial skills in the workforce; integration of research and education; technology transfer to create new companies; creation of the infrastructure for innovation in Puerto Rico; development of a strategic plan for innovation in Puerto Rico; creation of new jobs and a technologically literate workforce.

Potential Economic Impact
This activity should have the following outcomes: general economic well being with new start-up companies and new high tech jobs for the citizens of Puerto Rico.

Potential Societal Impact
This activity should provide new jobs and economic well being for under-represented groups.